The St. Edward's University Robert Noyce Teacher Scholarship Program

St. Edward's University is collaborating with Austin Community College to recruit and prepare 18 math and science majors to teach in middle and secondary high need schools (grades 4-12) in the Austin Independent School District. Recruitment is targeted to high performing underrepresented and first generation math and science students enrolled at Austin Community College and St. Edward's University. Through cross-disciplinary instruction and mentoring from math, science, and education faculty from St. Edward's University and Austin Community College, blended with cohort-based professional development from the Charles A. Dana Center at the University of Texas at Austin, Noyce Scholars participating in the program receive advanced training in strategies for success in teaching mathematics and science in diverse, high need middle and secondary schools in the Austin Independent School District during their coursework, field experiences, summer science leadership academy, and new teacher induction period. Early field experiences for freshmen and sophomores include participation in a summer science and teaching camp focusing on environmental education. Noyce Scholars participate in a week long Science Teacher Leadership Academy prior to the induction period. A mentoring and induction program is offered through the first three years of teaching.